Optical and Raman Spectroscopic Studies of Cr3+ Ions in Solids

This is a Career Advancement Award in the area of condensed matter physics. This research investigates the processes that cause transition-metal ions to lose excitation nonradiatively, rather than radiatively. The nonradiative decay is relevant to efficiencies of tunable solid-state lasers employing trivalent chromium, titanium, and divalent cobalt. Such lasers have industrial, environmental monitoring, and medical applications. Optical and resonance Raman spectroscopy will be used to measure the vibrational spectra of several trivalent chromium-doped crystals and glasses that differ in the amount of energy the chromium ion loses nonradiatively. Relationships between the vibrational spectrum and the nonradiative rate will be sought. This will add to the understanding of the electron-phonon interaction in transition-metal ion doped solids, and may determine which ion/host combinations are likely to produce better tunable solid-state laser.